Planning Grant to Develop a Proposal Preparing Elementary Teachers to Use Innovative Curricula

9355827 Bell This is a four-month planning project by two major NSF mathematics curriculum development projects (UCSMP at The University of Chicago and TERC, Cambridge, MA) to develop a proposal for large-scale elementary teacher enhancement project for the April, 1994 NSF Teacher Enhancement submission. The project staffs and associated publishers will seek to develop a plan to provide teachers with appropriate foundations for using any curriculum that is aligned with recent reform recommendations.